Improvement of Earthquake Loss Prediction Model Based on theLoma Prieta Earthquake

This a post-event investigation project to learn engineering lessons from the Loma Prieta earthquake (October 1989). The objective of this project is to improve the reliability of the existing earthquake loss estimation models based upon observations of the October 17 Loma Prieta earthquake. Research will be focused on two issues: * the amplification of ground motion due to certain soil conditions, and * a Bayesian update of the loss estimate matricies for various classes of buildings. The study will comprise of four tasks: (1) Data collecting and processing, (2) development of soil amplification model, (3) Bayesian update of intensity-damage relationships, and (4) calibration of the updated integrated loss estimation model developed earlier by the investigators at Stanford University. A successful completion of the project will advance the state of the art in earthquake risk management to the benefit of all segments of society.